Investigation of Processing Induced Magnetic Phenomenon in Fe-Zn Alloys

The as milled states of Fe-Zn materials obtained by ball milling of elemental powders of appropriate amounts are characterized. The study contributes to the understanding of far from equilibrium transformation kinetics associated with intermetallics, and their relation to the re-assessment of equilibrium phase diagram. The origin, and nature of the induced magnetism associated with ball milling of Zn-rich FeZn base materials is evaluated. The results of this studyare valuable in fabricating cheap magnets for appliances, and in better control of coated steels for automotive panels, nuts, bolts, beams, etc.